Group 4 Metal Complexes of Boron Heterocycles

Dr. Arthur J. Ashe, III, Department of Chemistry, University of Michigan, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division for the study of heteroaromatic compounds involving group 13 and 15 elements and their transition metal complexes. Previous research has demonstrated that boratabenzene zirconium complexes can serve as homogeneous catalysts for the polymerization of olefins. Building on this result and by analogy to ansametallocenes that are known to be active catalysts, a series of metal complexes containing heteroaromatic ligands will be designed with the goal of obtaining highly active and stereospecific olefin polymerization catalysts. Specifically boratabenzene complexes which bear pendant substituents of varying electronic and steric demand and a series of bridged boratabenzene complexes will be prepared. These compounds will exploit variations in electron donating ability possible with the heteroaromatic ligands to fine tuning and develop more effective polymerization catalysts. Finally new boron containing heterocycles will be prepared in order to extend the range of heteroaromatic compounds available to be used as ligands. Transition metal complexes promote very selective catalytic and stoichiometric transformations of organic compounds. Much of the unique reactivity at the metal center is a reflection of the density of electrons surrounding the metal and this electron density can be controlled by adjusting the groups that are attached to the metal. A very common 'group' contains a ring of carbon-hydrogen units in what is called an 'aromatic' arrangement. In this project a series of metal complexes will be prepared in which an 'aromatic' group composed of carbon-hydrogen and boron species is attached to a metal. This will permit the electron density about the metal to be carefully adjusted in order to promote specific chemical and catalytic behavior and will set the ground work both to understand existing processes and to rationally design new ones.